Renovation of Engineering Research Building

This proposal requests fund for renovation of laboratory facilities in Krieger Hall, a primary research laboratory building. The renovation and remodeling will provide the resources to locate more members of the Department of Biomedical Engineering in proximity to other engineering departments with a greater opportunity for joint research in areas including biomedical sensors, biomaterial and biomedical imaging systems. Funds will also be used for renovating an interdisciplinary, interdepartmental microfabrication facility for researchers in the G.W.C. Whiting School of Engineering. The development of such a facility will require major renovation or replacement of an existing clean room to add exhaust systems for safe use of chemicals and gases needed in microfabrication, and an improved air filtration systems to reduce particle counts. The facility will be used by faculty throughout the engineering school including faculty in biomedical, electrical, chemical engineering, and materials science in the conduct of sponsored research. Ongoing projects in diverse areas such as microfabricated biomedical sensors, compound semiconductors lasers, microwave devices, analog integrated circuits, electoractive polymers, porous silicon studies, barrier properties of polyamide layers, would benefit from this facility. Use of this common facility by the participants and their trainees (postdocs, graduate and undergraduate students) will improve the interdisciplinary interactions in this technical area.